The 2014 U.S. National Committee for Crystallography Young Observers Program

The U.S. National Committee for Crystallography (USNC/Cr) is supported by an award from the Division of Chemistry to host the 2014 USNC/Cr Young Observers Program. This will provide travel fellowships to twenty U.S. early career crystallographers to attend the XXIII IUCr Congress in Montreal, Canada, on August 5-12, 2014. The Young Observers will share their research internationally during 2014, the United Nations (UN)-declared International Year of Crystallography. The USNC/Cr Young Observers program will pursue the following objectives: 1) support early career U.S. crystallographers in sharing their research at the 2014 IUCr Congress, 2) provide opportunities for interaction between U.S. early career scientists and leading crystallographers, 3) provide a mentoring experience to every fellowship recipient, 4) expose the awardees to new areas of crystallography research, 5) expose the awardees to the field of science policy, 6) build a network of early career and senior U.S. crystallographers, and 7) foster international collaborations between U.S. crystallographers and their international peers. The fellowship program will enable some early career scientists who might not otherwise be able to attend the Congress to do so through a unique program.